Conference on the Role of Scientists in Science Education Reform; December 6-9, 1991, Boston, Massachusetts

Education Development Center, Inc.(EDC), in collaboration with the American Society for Cell Biology (ASCB), will organize a conference designed to encourage and support the participation of ASCB members in pre-college science education reform. This conference will provide a unique opportunity for a group of scientists to come together with science educators, teachers, school administrators, and other scientists already deeply engaged in precollege work to explore the nature of hands-on inquiry science teaching and how practicing scientists can contribute to national science reform. The conference precedes the annual meeting of the ASCB in Boston, Massachusetts. Its intensive three day program is designed for maximum of thirty participants and will include a mix of experiential sessions, presentations, panels, and discussions. A report summarizing the conference activities and findings will be produced and disseminated to the full membership of the Society and to other scientific and educational audiences. The cost sharing for the conference will be eighteen percent of the NSF portion.